Local Numerical Solutions in Solid Mechanics

LOCAL NUMERICAL SOLUTIONS IN SOLID MECHANICS

Mircea Grigoriu and Subrata Mukherjee
Cornell University

Local numerical methods, based on Monte Carlo simulations, directly
deliver the value of an unknown function at a point inside a domain without
the need for calculating its value at any other point. No meshing is
required, no linear equation systems need to be solved and the method is
very easy to code and parallelize. This class of methods includes the
Random Walk Method (RWM), the Walk on Spheres Method (WSM) and
the Boundary Walk Method (BWM). Local methods will be developed in
this project to solve linear elasticity problems, and then for homogenization
problems and problems with random boundaries.